Cooperative Agreement: Support of the National Center for Atmospheric Research

9209181 Anthes This agreement between the Foundation and the University Corporation for Atmospheric Research (UCAR) defines the manner in which the National Center for Atmospheric Research (NCAR) shall continue to support research in atmospheric sciences and related sciences. The primary purpose of this agreement with UCAR is the support of NCAR as defined in Scientific Program Order #1. Additional scientific program orders define other programs continued by UCAR under the provisions of this agreement. ***